U.S.-Argentina Cooperative Science Program: Correlation of the Magnetic and Superconducting Properties of the R2Cu04 Compounds

This award from the U.S.- Argentina Cooperative Science Program supports research in materials science to be conducted by Dr. Saul Oseroff of San Diego state University and Dr. Manuel Tovar of the Centro Atomico Bariloche (CAB), Rio Negro, Argentina. The project focuses on the study of correlation of the magnetic and superconducting properties of doped R2CuO4 compounds. The project centers on the possibility of finding a correlation between the appearance of a weak ferromagnetic component (WF) and loss of superconductivity in the heavier rare-earth cuprates. Compounds, which when doped with Ce or Th, do not become superconductors. A series of experiments are proposed including ones involving the effects of hydrostatic and axial pressure on the magnetic and superconducting properties. The project continues an active and successful collaboration between two able and productive groups. *** //